CAREER: Economic Theory, Testing of Theories

This CAREER project is a collection of several studies; two main of them are: Testing Probabilistic Theories and Repeated Games with Private Monitoring.

Perhaps surprisingly, it is not easy to come up with "good" empirical tests, which would reveal if potential experts know the actual data generating processes, without making hard to validate assumptions on the process itself; examples include weather forecasts or forecasts of financial analysts. Several authors, beginning with Foster and Vohra, show that some natural tests (such as calibration) or classes of tests (such as tests that must give a verdict in a fixed finite time), that control for type I error have completely no power of controlling for type II error. Referring to the ideas introduced by Dekel and Feinberg, a good test that controls for both types of errors can be constructed. Yet, it is conjectured that this and other good tests have to use counterfactual predictions in the way that is rare in statistics. Testing Probabilistic Theories seeks to identify properties of good tests, circumstances that allow for good empirical testing, as well as implementability of good tests, or strategies for passing ignorantly well-known empirical tests, in concrete settings (such as weather forecasting, or financial analysis).

Repeated Games with Private Monitoring attempts to determine the range of possible equilibrium outcomes for repeated games with imperfect private monitoring, and if possible, to provide "simple" and "robust" equilibria.

The CAREER project also includes ongoing studies on law and economics, mechanism design, decision theory and communication. For example, the study on law and economics compares different forms of arbitration (such as that in the Major League Baseball) from a welfare perspective.

The Broader Impacts
Testing Probabilistic Theories makes a contribution not only to economics, but also to other disciplines, including the philosophy of science. The results may have impact on demarcation criteria commonly used in science; for example, they cast some doubts on the celebrated falsifiability criteria of Popper. The results also seem to have a number of potential concrete applications (such as testing weather forecasts, and possibly recommendations of financial analysts).

The literature on repeated games traditionally has implications regarding collusive behavior in oligopoly markets and antitrust regulations, and the objective of welfare analysis of arbitration is to provide some insight on which form of arbitration should be used in public services such as police and fire protection, buyers and sellers in commercial contracts, baseball players and club owners, and divorce settlements.

It is an essential objective of this CAREER project to combine research with teaching. Summer reading groups on topics related to the ongoing studies are organized for graduate students who wish to specialize in economic theory, with the objective of facilitating the transition from coursework to independent research.

Interested undergraduate students are offered the opportunity of working as research assistants, e.g. collecting narrative evidence on evaluation schemes in industries producing probabilistic forecasts or collecting similar evidence regarding arbitration, and simultaneously, writing their senior dissertations and independent papers on the same or related topics.